Horizons Exploration Program (HEP)

The participants in the Horizons Program (HEP) at the University of Maryland Baltimore County (UMBC) will develop skills, identify resources and gain insights into a variety of science, mathematics and engineering careers. HEP opportunities will provide participants with in-school as well as out-of-school learning experiences that are predominately "out of the conventional classroom." The goals of the Horizons Exploration Program will be achieved through four themes that address biology, earth science, engineering, mathematics, physics, chemistry and information management. Strong components from these disciplines will be threaded throughout the project. Presenters will be highly competent in their fields and believe that the targeted student population can learn the material to be presented and benefit from the associated career exploration activities. HEP will have a heavy emphasis on the applications of science and mathematics in the careers examined, and participants will be exposed to careers having varying educational and entry level requirements. HEP participants will come from the Baltimore City Public Schools. HEP will involve 15 male and 15 female students who have completed eighth grade and are entering their first year of high school. Acceptance is dependent upon interest and aptitude in science and mathematics, an academic average of above 80, evidence of financial need and potential for success. Particular attention has been made to include parents of participants at appropriate junctures during both the summer and school year agendas. HEP participants will reside in UMBC dormitory rooms during the summer component of the project. During the school year the HEP participants will continue to explore career options, develop science process skills and conduct science investigations in a variety of settings and science disciplines.